STTR Phase I: Designer peptide opsonins against COVID-19

The broader impact / commercial potential of this Small Business Technology Transfer (STTR) Phase I project is to develop a new therapeutic for the SARS-CoV-2 virus causing COVID-19. The proposed technology is a novel therapeutic engineered to specifically target the coronavirus and assemble on its surface, disabling the virus’ infectivity. This therapeutic will potentially protect COVID-19 patients with mild to moderate symptoms from worsening and possibly transmitting the virus. The therapy may later benefit asymptomatic or non-infected high-risk groups as well.

This Small Business Technology Transfer (STTR) Phase I project will study the nature of supramolecular assembly of self-assembled peptides (SAPs) on the surface of pathogens such as the COVID-19 virus (SARS-CoV-2) and its impact on the impairment and immune recognition of the pathogen. Self-assembled peptides have greater stability than unfunctionalized peptides, yet they are twenty times smaller than antibodies. Therefore, they may combine key benefits of antibodies and small molecules, enabling a new modality designed for rapid and affordable widespread development of urgently needed therapies. Current repurposing efforts are limited by a lack of specificity, while SARS-CoV-2-specific efforts are dominated by antibodies or proteins that are challenging to rapidly manufacture at scale. We will: (1) engineer functionalized anti-COVID-19 SAPs and studying their binding kinetics to the SARS-CoV-2 viral spike protein receptor binding domain (RBD); (2) investigate the in vitro efficacy of anti-COVID-19 SAPs in inhibiting viral infection; and (3) establish the in vitro cytocompatibility and in vivo dose range tolerability of the SAPs.